CAREER: Software Tools to Synthesize Multiple Packages on Parallel or Distributed Architectures

This project will develop software architectures capable of supporting user applications requiring a heterogeneous set of parallel or distributed modules. The major thrust is to develop a set of tools and techniques to support the generation of interfaces designed to link parallelized packages. In order to establish a general methodology, it is necessary to develop a testbed that utilizes many of the types of packages that must be integrated. The project will develop a testbed that will act as the substrate for a medical informatics project and a project in computational aerospace. The distributed packages in this testbed will include parallel databases, computerized medical records, High Performance Fortran programs, statistical package, and programs developed with parallel C++ class libraries such as LAPACK ++ and CHAOS ++. The ultimate goal of this research is to develop a framework that provides efficient integration of heterogeneous, parallel/distributed program modules.